Metastable Liquids, Plastic Crystals, and Glasses

Studies in three principal areas will be done: (1) Viscous liquids, plastic crystals, and glasses, under which umbrella they propose to refine the knowledge and understanding of fragility in liquids, and to invoke the comparable phenomenology of plastic crystals, specifically seeking plastic crystals with "fragile" behavior. A particular note is made of the challenge of systems with slow structural degrees of freedom which couple only weakly to the viscoelastic modes. Finally, they identify the area of octapolar glasses as one worthy of attention: (2) Liquids at negative pressure, in which area they wish to investigate physicochemical properties of liquids when in a state of tension; they also propose molecular dynamics studies invoking negative pressure rupturing of initially normal liquid structures to produce and then study fractal structures and dynamics: Finally (3) they outline several problems in geochemical liquid and glass research. They propose both experimental and computer simulation studies in this area.